Advancing WPI

This award is made under the high performance connections portion of ANIR's "Connections to the Internet" announcement, NSF 98-102. It provides partial support for two years for an OC-3 connection. Applications involve data mining, surface metrology, non-invasive imaging for stroke research and atherosclerosis; distributed computing, cryptography, wireless LANs, caching, vehicle crashworthiness research, fire protection engineering, and spacecraft electric and chemical propulsion. Other efforts include the ODEToolkit project, global project centers, and a digital library. Collaborating institutions include but are not limited to: the Swiss Federal Laboratory for Materials and Testing in Thun, University of Massachusetts Medical School, the Central Massachusetts Magnetic Imaging Center, Lawrence Livermore Laboratory; NASA, the Metals Processing Institute, the Center of Wireless Information Technology, and the New England Center for Mixed Signal Processing.